SGER: A Toolset for Making Web Sites Accessible to Aging Adults in a Multicultural Environment

EIA-203409
Becker, Shirley
Florida Institute of Technology

SGER: A Toolset for Making Web Sites Accessible to Aging Adults in a Multicultural Enviornment

As US citizens becomes more reliant on the Web as a primary source of information, we must ensure that all have accessibility to that information in formats that are useful and usable. This becomes an issue in the US, with its growing elderly population. This grant is to develop and explore the usefulness and capability of automated tools to assist government agencies in determining accessibility for the elderly and to develop metrics by which such accessibility can be measured.